Field Skills and Activities Development for Earth Science Teachers

Though geology is primarily a field science and the most effective method of study is in the field, most earth science teachers have little if any such experience. This program is designed to help teachers develop field skills and to provide them supplies, resource materials, and field activities that can be utilized in their earth science classes in Arkansas and Missouri. The program will consist of two segments. The first portion will introduce earth science teachers to as much diverse geology as possible to develop their field skills. The course will begin at the University of Arkansas and Missouri campuses with a three day intensive review and an introduction to the geology of the field area, Lander, Wyoming. In Wyoming the participants will work in field projects, and a resource unit on a field topic in geology. The second portion of the program will occur in Arkansas and Missouri and involve the teachers in applying the skills learned in field camp to develop resource materials and field activities for their earth science classes. These reports will be edited and printed as a fieldguide to the geology of the state.